Earthquake Source Dynamics: Data and data-Constrained Numerical Modeling

This workshop will be held June 27-July 1, 2010 Bratislava, Slovak Republic, and will be attended by 20 US scientists funded from this grant. This meeting will bring together scientists from the Americas, Asia and Europe to discuss investigations of earthquake dynamics using numerical simulations and earthquake observation. Participants will work together to optimize strategies for improved modeling and testable predictions. There will be three days of talks focusing on simulations of past earthquakes, fault zone structure and rheology, laboratory data on friction, energy budget for seismic activity, scaling laws and other earthquake parameters.

This is the only workshop in the past three years to concentrate on the combination of numerical modeling and observational data related to earthquake physics.